U.S.-U.K. Workshop on Cellular Engineering

9314690 Nerem A Workshop on "Cellular Engineering" is to be held September 16-17, 1993 in Chester, England. The purpose of the meeting is to assess the current knowledge of the emerging field of cellular engineering and future directions of research in this area. An equally important outcome will be the encouragement and possible development of collaborative efforts in the area between researchers in the U.S. and the U.K. ***